CAREER: Habitability of the Hadean Earth - A South African perspective

Earth is the only planet known to harbor life. Initially, Earth was uninhabitable because it was covered by a magma ocean and frequently struck by giant impactors. Through time, the first crust crystallized, oceans precipitated, and continents started forming. Yet, we don't know when these processes occurred and when Earth became habitable. This is due to lack of a rock record for Earth’s first ~550 million years of history, the Hadean Eon. The only remaining materials from that time are zircons. Most of our knowledge comes from a single location of Hadean zircons, the Jack Hills in Australia. Recently, the PI’s team discovered Hadean zircon in South Africa. This offers a second lens into the Hadean Eon. Trace elements and isotopes of these zircons will lead to a greater understanding of the processes that were key to Earth’s habitability. The PI will create a museum exhibit and provide research opportunities for undergraduate students. Lastly, improved undergraduate and graduate teaching materials will be disseminated for broader use.

The proposed work will create the first large dataset of Hadean zircon outside the Jack Hills by analyzing a statistically robust number of zircons and by broadening and integrating zircon isotopic (Hf, O, Si) and trace and rare earth element geochemical analyses. The research examines Hadean zircons from the Green Sandstone Bed, South Africa, that were previously collected, extracted, and dated through a separate grant. Firstly, the research will test whether the zircons formed in a stagnant-lid or mobile-lid (i.e., plate tectonics) environment through an integrated study of zircon Hf and O isotopes, trace elements and with modeling. Secondly, it will assess redox-sensitive Ce anomalies in mantle-derived zircons to evaluate the oxidation state of the mantle. A comparison to data from Hadean zircons of the Singhbhum Craton and the Jack Hills will provide constraints on mantle heterogeneity. Thirdly, it will assess isotopic (O, Si) and geochemical proxies (Al, P) to test for the generation of clays and the presence of meteoric waters as proxies for continental emergence through time. The research results will be disseminated through articles in journals, presentations at conferences, and submission to online databases.